District 11 Earth and Weather Studies Program (DEWS)

The District 11 Weather and Earth Studies Program (DEWS) in Community School District 11 (CSD 11) is designed to improve the teaching and learning of the atmospheric, earth, physical and life sciences in grades 5-8 throughout the district. Beginning in September 2001, an atmospheric/Earth Systems Science (ESS) program of science instruction will be in place across these grade levels. The new approach to science instruction involves the use of atmospheric science themes as the basis of an integrated and interdisciplinary program that unifies the atmospheric, earth, physical and life sciences in conformance with the National Science Education Standards, the American Association for the Advancement of Science (AAAS) Project 2061 Benchmarks for Science Literacy, the New York State Intermediate Level Science Core Curriculum Grades 5-8, and the New York City New Standards Performance Standards for Science.